Fast Plants Cooperative Network

This project will provide an opportunity to broaden the dissemination of a new experimental program for introducing more plant science into biology teaching (vis-a-vis current heavy emphasis on animals) and enhancing the hands-on character of plant science teaching. It is based on the use of a new variety of brassica, christened "Wisconsin Fast Plants", developed by the Principal Investigator at the University of Wisconsin. They have many characteristics which make them well suited to school laboratory experimentation, but particularly important is their very short life cycle (35 days from planting to seed harvest). Teaching methods and materials designed to allow full exploitation in school settings of the characteristics of the Fast Plants have already been developed under an National Science Foundation Materials Development grant. Nine teams spanning the country will be trained in the use of these methods and materials and extend them as necessary to serve primary and secondary students. Teams will be made up of elementary, middle and high school teachers, science supervisors, university professors, both of science education and science, and representatives of state departments of education. Each team, with the cooperation of an Advisory Board which includes school, business and community representatives, will develop a regional plan for further dissemination. All teams will participate in setting up a Fast Plants Cooperative to continue networking and outreach.